SGER--CSR/SMA: Thermal Aware Dynamic Resource Management for Datacenters

Minimizing the energy cost and improving thermal
performance of datacenters are among the key issues towards optimizing computing
resources and maximally exploiting a datacenter's computation capability.
In general,
there is no automated feedback control loop between the physical environment of a data
center, and the datacenter's management software/system software scheduler for making
thermal and power-efficient resource management decisions. The energy cost and thermal
distribution of a datacenter depends on the multi-scale properties of a large number of
multi-modality system variables, such as cooling capacity, hardware thermal
characteristics, and workload profiles. An integrated, system-oriented approach towards
this problem could provide several significant benefits.
Thiswork, will investigate approachers for a unique merger between physical infrastructure and the resource
management functions of the cluster operating system to take a holistic view of data center
management, and make global (at the level of a datacenter), power-aware, and
thermal-aware job scheduling decisions. The project seeks to develop a comprehensive solution
for on-line, dynamic and automated thermal management and control framework for the
power-limited datacenters. The methods include an integrated two-pronged approach for incorporating fast thermal evaluation, using an abstract heat model, in the resource management
functions of the datacenters; namely: new thermal aware scheduling techniques will be developed
by making traditional scheduling techniques cognizant of thermal performance of their
scheduling decisions by taking into account the spatio-temporal thermal implications of
job placements. This entails making scheduling decisions by taking into account not only
job characteristics but also physical placement of computational node, the thermal
characteristics of heterogeneous systems, and thermodynamics. These thermal-aware
scheduling techniques will be comprehensively evaluated using new performance metrics
such as utilization per operating cost.